The HerpNET Community Informatics Project: Development of a Distributed Information Network of North American Herpetological Databases (HerpNET)

The HerpNET community project will enable knowledge networking of biodiversity information about the world's amphibians and reptiles for science and society. The information store is enormous, acquired during 300 years of biological exploration of the earth. Access to and use of these data are fundamental if we are to understand our biological diversity and its functional role in environmental system. Amphibians are especially sensitive indicators of environmental quality and change. The project is designed to create a network of distributed herpetological databases that builds on proven technologies and scales well. It is also designed to be economical to implement and easily accessible. HerpNET will help to form the basis on which a largely descriptive science can become a predictive one. It will provide global access and sharing of data, data standards, installation and management software and documentation.